Laser and Molecular Beam Apparatus for Undergraduate Teaching Laboratory

A new physical chemistry laboratory course in quantum mechanics and statistical mechanics is using a laser and molecular beam apparatus to develop an intuitive understanding of concepts usually presented in the abstract. Experiments performed on ultracold molecules under the collisionless conditions present in a molecular beam allows students to more clearly see the applicability of pertinent models and theories. More conventional experiments are pedagogically less effective because the phenomena of interest are obscured by intermolecular interactions and the wide range of states occupied by molecules in the sample. The new equipment is also be used in an advanced spectroscopy and quantum mechanics laboratory course.